SCC-PG: Building a smart and connected rural community for improved healthcare access through the deployment of integrated mobility solutions

Various programs have been established to extend and promote healthcare services to low-income rural Americans facing financial barriers. These programs offer a wide range of healthcare services at little to no cost. However, despite the availability of these services, challenges arise in bringing patients to healthcare providers in a timely manner for healthcare. Many individuals in rural communities are unable to receive recommended services, primarily due to transportation challenges. These challenges, in turn, significantly impact their care-seeking behaviors and hinder their access to timely healthcare. Patient no-shows not only delay diagnoses but also result in lost revenue for healthcare providers due to under-utilization of medical facilities and staff resources. To address these issues, the ongoing mobility transformation fueled by on-demand services may offer affordable transportation solutions to improve healthcare access and reshape care-seeking behaviors among people in under-served communities. This project focuses on West Alabama, specifically the health-disadvantaged Black Belt region, to investigate preventive care-seeking behaviors. The primary objective is to explore the impacts of on-demand mobility services on these behaviors among under-served individuals.

This project will create a Smart and Connected Rural Community (SCRC) comprised of interdisciplinary researchers, healthcare providers, transportation providers, and community stakeholders to promote preventive healthcare in rural communities through deploying on-demand mobility services. This project will conduct integrative research with objectives covering both technological and social science dimensions: 1) Technological Dimension – By partnering with local health providers and transportation providers, this project will develop a Smart Health and Mobility System (SHMS) to leverage and coordinate existing transportation resources within the study area to offer on-demand mobility services to patients and doctors/nurses in need of traveling between medical facilities and patient homes; 2) Social Science Dimension – Through community engagement activities (e.g., meetings, focus groups, and surveys), this project will explore the impacts of on-demand mobility services on preventive care-seeking behaviors among uninsured or under-insured patients. This project will significantly advance the knowledge by exploring the impacts of mobility services on care-seeking behaviors in disadvantaged rural communities. The knowledge will aid healthcare providers and stakeholders make informed decisions to leverage emerging mobility services to deliver cost-effective healthcare services and improve quality of life in disadvantaged rural communities. The project is expected to set the groundwork for implementing on-demand mobility solutions to enhance healthcare in these areas.